CRI: Enhancing the Open Network Laboratory

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Enhancing the Open Network Laboratory
Proposal: CNS 0551651
PI: Turner, Jonathan S.
Institution: Washington University

The principal investigators at Washington University will extend and upgrade the Open Network Laboratory as a community resource. The Open Network Laboratory (ONL) provides community access to extensible, gigabit routers; it allows remote users to conduct experiments and demonstrations for research and education. It can be used to prototype new network architectures and services, monitor network traffic at various levels of detail, and provide experimenters with real time interaction and display. This award will expand ONL with eight additional routers using new network processor platforms; these will allow packet classification, per-flow queueing, flexible measurement, and plug-ins for developing new features. The existing ONL is heavily used by networking researchers and educators. These enhancements will enable more users to access the resources, expand the realism of experiments, and enable research and experimentation that is better suited to emerging networking architectures. Broader impacts include providing a broadly accessible facility for research and education, supporting research and education that complements a leading industry sector, and providing a facility that uniquely supports realistic experimentation for education uses.